Improvement of the Modern Physics Laboratories for Engineering Students

This project will bring more contemporary physics into the college introductory physics curricula by improving the laboratory instruction in modern physics. Recent developments by commercial companies have provided functional units of modern physics equipment for undergraduate instructional purposes. These units are multi-purpose in design so several correlated, but distinct principles of contemporary physics may be experimentally investigated. The major functional units to be purchased will supplement modern physics instrumentation presently on hand in the department. Experiments will be organized around the physics of the electron, and will include: 1. Physics of Electron System: (The systematic study of the electron: "e/m", the Hertz critical potentials: "e" energy levels, electron diffraction: dual nature of electron, Planck's "Quantum of Action" principle.) 2. Electron-Spin Resonance System: (Magnetic moment of electron due to its spin; electron resonance; Lande' factor.) The intent is to provide pre-engineering students with an education comparable to that received by students in engineering schools they transfer to. The college will match the award with an equal amount of funds.